Partial Core Support of the Board of Natural Disasters

9814560 Parker This award provides partial support for the core activities of the Board on Natural Disasters (BOND) for a twelve-month period. the Board provides a multidisciplinary forum for discussions and studies of natural disaster issues. A special focus is on the International decade for Natural Disaster Reduction (IDNDR). Specific board activities will include organizing a major symposium and participating in international meetings. ***